GOALI/Engineering Faculty in Industry: Advancing On-Machine and Post-Process Inspection Techniques for Machine Performance Enhancement

9631830 Mou This GOALI/Faculty in Industry award will explore ways to increase the precision and functionality of prismatic type machining centers. The technical approach links analysis methods and the technology of on-machine and post process measurements. In this way it is possible to enhance both manufacturing and inspection accuracy and precision. This award will enable the principal investigator to go to Ford Motor Company's labs and collaborate with Ford on determining the most appropriate on-machine probing techniques, and defining ways to use probing data to diagnose machine tool errors. The methods for identifying and diagnosing errors include on machine probing and compensation methods, post process inspection and analysis of systematic machine errors, and adaptive sensor fusion for compensation and controlling precision machining processes. This research will help approach closed loop control for discrete parts manufacture. If selected production parts that are measured off-line by coordinate measuring machines, and this data is fed to machine tools with sensors and compensation algorithms on board, then it provides a way to continuously and adaptively improve the precision and quality machined parts.